Research Infrastructure: Data-Intensive Computing for Spatial Models

EIA-9972879
Chase, Jeffrey S.
Agarwal, Pankaj
Arge, Lars
Lebeck, Alvin
Littman, Michael
Duke University

Research Infrastructure: Data-Intensive Computing for Spatial Models

Duke University researchers will conduct research on locality management for data intensive systems; locality issues include algorithms and toolkits to promote locality, fast and predictive data placement, memory system architectures (main, cache, and disk), network I/O, and mobile/wireless computing. Applications for the research include computational sciences, GIS applications, 3D modeling and visualization, molecular modeling. For wireless and mobile computing, transcoding for heterogeneous devices and power management will be addressed. As an outreach component, Duke will work with Martha Absher, a Presidential Awardee for Excellence, who coordinates College of Engineering activities to recruit and retain minority students; their activities will center on expanding REU opportunities; they will also collaborate with North Carolina Central University, also in Raleigh, in computational science.